Conference: 3rd International Workshop in Plasmodesmal Biology to be held in Zichron Yakov, Israel, from March 10- 15, 1996

9513727 Harris This is a group travel award to support the participation of U.S. scientists at the 3rd International Workshop on Plasmodesmata, to be held in Zichron Yakov, Israel, March 10 through 15, 1996. ***